POWRE: Research in and Teaching of Nuclear Analysis Techniques

This POWRE grant will support a new initiative in the PI's research and educaitonal activities. The PI plans to develop a new program in Nuclear Analysis of Materials. She will develop a setup to measure the distribution of oxygen (18) in surface layers of various materials through the detection of the nuclear resonance in oxygen at 151 keV. The development of this technique will complement a large array of existing characterization tool already available on campus. In addition these experiments will be a precursor and test bed for a setup to measure oxygen (18) reaction which has a much smaller cross section and is of importance for the PI's muclear astrophysics research. The development of an experimental techniques course will allow the PI to expand her teaching to the graduate level. The award is funded by the NSF POWRE program, the Office of Multidisciplinary Activities in the MPS Directorate, and the Physics Division.